IUTAM Symposium on Computational Methods for Unbounded Domains, July 27-31, 1997, Boulder, Colorado

IUTAM SYMPOSIUM ON COMPUTATIONAL METHODS FOR UNBOUNDED DOMAINS This symposium will be held on July 27-31, 1997 at the University of Colorado in Boulder. Sponsored by the International Union of Theoretical and Applied Mechanics and attended by sixty researchers from fifteen countries, the symposium will focus on the use of non-reflecting computational boundaries to address wave-propagation problems in unbounded domains. Such problems frequently arise in acoustics, aeronautics, electrical engineering, meteorology, oceanography, ultrasonics, and seismology & earthquake engineering. The objectives of this symposium are to improve communication on this topic across several scientific and engineering disciplines, illuminate the performance characteristics of recently developed methods, and facilitate the formulation of improved methods, especially for highly challenging problems. In pursuit of these objectives, participants will propose and then agree on some generic benchmark problems with which to compare the characteristics of existing methods, and brainstorm promising approaches for the development new methods.